A Fermentation and Cell Collection Facility at the University of Michigan

Abstract
DBI-9970145

Funds are requested to purchase equipment that will be used for cell growth and harvesting. This equipment will be used by 10 research groups on the central campus of the University of Michigan. The projects that will utilize this equipment address diverse aspects of biochemistry and biophysics, but are primarily focused on mechanistic enzymology and protein structure/function studies. Two fermentors will be purchased. A small fermentor will be used for preparing isotopically labelled proteins while a large fermentor will be used by projects that require large volume growths, typically for spectroscopic experiments. Most of the projects will benefit from both fermentors. In addition, a continuous flow centrifuge and a French press will be purchased for isolation and lysing cells. This equipment is urgently needed and not presently available.